Studies in Labor Mobility and Unemployment

A major puzzle in economics is why the equilibrium rate of unemployment is much higher now than it was twenty years ago. For example, in the case of men in their prime working years, the unemployment rates of the early and mid 1980s were more than triple the rates experienced by this group in the 1960s. Other groups show similar increase in their equilibrium rates of unemployment. Under the previous grant, the authors characterized many of the key features of the evolution of unemployment over this period, which caused them to reject existing theories of unemployment because they were inconsistent with the facts. It was found that rising unemployment over this period was associated with much longer periods of unemployment and declining sectoral mobility of the labor force. In addition, unemployment cut much more deeply into the population of prime aged workers. Using various sources of micro data on individual unemployment and unemployment duration, the authors will extent this earlier empirical work to a more thorough study of unemployment dynamics at the individual level, including the key role of mobility. An optimizing model will be developed and tested which emphasizes the importance of specific skills and specialization of workers, along with optimal individual mobility decisions by specifically trained workers. Existing theories of labor markets cannot adequately explain the secular increase in equilibrium unemployment rates observed over the past twenty years or so. This project will develop and test a theoretical framework for doing just that. It is hoped that the results of this study may suggest ways of reducing the long-term equilibrium rate of unemployment, and the duration of unemployment spells.